CNS-SGER Integrated Security Infrastructure for Personal Identities and Consumer Computing

The PIs will develop a comprehensive solution for protecting identity and protecting consumer-computing resources under the viral threat model (VTM). The PIs will take a three-pronged integrated approach to develop: 1) a non-tamper able, non-programmable hardware-device with secure I/O with human in-the-loop control for personal identity management; 2) an autonomous non-tamper able hardware security core with secure I/O for root kit detection, recovery, and hierarchical trust management; and 3) a virtual memory based autonomous security kernel for systems which lack hardware support.

This proposed research would make consumer computing and personal financial transactions safer.